Variational Methods for Some Problems in Materials Science

Bocea
DMS-0806789

The project is motivated by several questions in two
distinct areas of materials science. The first part of the
project undertakes the development of a general theory that
allows for efficient characterizations of the yield set of a
polycrystal by means of suitable variational principles in
L-infinity. A new variational formalism leads naturally to
several problems in the emerging area of calculus of variations
in L-infinity for the case where the functionals to be optimized
are the essential supremum of some expression involving
divergence-free fields. Here the natural approach is to minimize
the maximum of certain relevant quantities instead of their
average. The investigator studies selected issues in this
direction, with an emphasis on those that can have an impact on
our understanding of plasticity. Among these, the study of the
systems of partial differential equations that arise as Aronsson
equations associated to the new variational principles in
L-infinity is of particular interest. The second part of the
project deals with the derivation of nonlinear membrane theories
from three-dimensional elasticity, seeking to better understand
the formation of interfaces in thin films of martensitic
materials. The project sheds light on the structure of the
minimizers for a new effective thin film energy, and indicates
appropriate minimizing sequences.

The project aims to set on rigorous mathematical grounds
some of the traditional models used by engineers and material
scientists and, on the other hand, to explore new variational
principles in the case where one wants to know how big some
quantity can be at its maximum value, not merely on average.
This question arises in many areas of science and engineering and
is of fundamental importance in such applications as elasticity,
image processing, damage and fracture mechanics, and plasticity.
The investigator studies this question in the first part of the
project. In the second part he deals with the derivation of
nonlinear membrane theories from three-dimensional elasticity.
This is motivated in part by the need, originating from important
technological applications, to better understand and predict the
formation of interfaces in thin films of martensitic materials.
The project sheds light on the structure of the minimizers for a
new effective thin film energy recently proposed by the
investigator, and indicates appropriate minimizing sequences that
are expected to provide some insight into the design of
technologically useful active material structures, more complex
than those suggested by existing thin film theories.